LINK: Small-Scale Societies of the North Atlantic

This goal of this proposal is to convene two international workshops incorporating social and natural scientists in order to examine how small-scale societies, such as the Labrador Inuit, have responded to long- and short -term climate fluctuation in the North Atlantic region. The collaborators all conduct research in the North Atlantic region and conceive of their individual study areas as regional monitoring sites in which chronology, climate, subsistence, and technological issues can be examined. The study sites range from northern Greenland to Newfoundland. This region is strongly influenced by El Nino effects, and ice core data afford exceptional climate records for comparisons with human settlement and resource changes over time.